Secure Virtually Isolated Networks to Avoid and Tolerate Denial of Service

The widespread need and ability to connect machines across the Internet, in a world where intelligent objects rather than documents are exchanged, has caused the network to be more vulnerable to intrusions and has facilitated break-ins of a variety of types. Most of the methods currently available to deal with network
vulnerability to abuse and attacks are either inadequate, inefficient oroverly restrictive. Compounding the
problem is the need to maintain an acceptable level of quality of service (QoS).
The proposed research project considers a heterogeneous network environment where servers, which
provide different levels of QoS support to clients through a contract protocol, are prone to faults and denial
of service attacks. The research project assumes the existence of intrusion detection mechanisms, and aims
at investigating new and potentially revolutionary approaches for the development of scalable and efficient
service deployment strategies and network resource management schemes to maintain acceptable levels of
QoS and security, despite faults. Two types of faults, namely, benign malfunctions and malicious intrusions,
will be considered. The former can be caused by a faulty, yet legitimate client that accidentally loses control
over its behavior, while the latter occurs with the intent to cause damage, such asDenial of Service (DoS).
Both types of faults can severely affect the performance of the network and compromise the integrity and
security of its services.
These faults can manifest themselves in the form of a protocol breach or a contract violation. The former
is exemplified by an authorized clients (impersonation may take place) who attempt to deliberately breach
the contract protocol and impact the behavior of the server to eventually cause its failure. Contract violation
occurs when a client attempts to acquire a level of service beyond what has been agreed upon in the service
contract. In order to protect the servers and the network, we propose two new techniques: fault avoidance,
based on the concept of replicated elusive servers, and fault tolerance, based on resource management schemes through the creation of a Virtually Isolated Network (VIN).
The concept of replicated elusive servers espouses ideas such as roaming addresses and frequent frequency
changes in wireless networks. Replication is coordinated through group communication supported by an
underlying multicast mechanism. VINs, on the other hand, provide the basis to achieve both physical and
logical separation (in space and time) of the resources reserved for each service, client, or class of clients.
Efficient management of network resources is achieved based on an integrative approach which considers
network performance, fault tolerance and security asintegral components of a multi-dimensional QoS space.
QoS support can then be perceived as a multi-layered optimization process which considers security, fault-
tolerance, resource allocation, communication protocol optimization and user level application management
as inhabitants of the same QoS spectrum and seeks to exploit tradeoffs in order to reach anoptimal operating
point. The techniques developed will be designed to handle multiple coordinated intrusions, clustered in
both space and time. A coordinated/clustered fault model will be developed and a study of its effect on the
developed techniques and algorithms will be conducted.
The proposed research will build on a foundation of prior work developed by the PIs which have a
strong track record of success in a wide range of research topics related to fault-tolerance, operating system
development and resource management for QoS support in wired and wireless networks. It is anticipated
that through algorithms development and analysis, simulation and testbed implementations, the results of
this project will lead to a better understanding of how to provide efficient support to QoS performance,
fault-tolerance and securityin an integrated manner, both in wired and wireless environments. An equally
important contribution of this project will be the training of high quality students in a field where expertise
is scarce.